REU2/Computational Chemistry

The purpose of the summer institute proposed by the University of Georgia is to have undergraduate students resident at UG during the summer in order to familiarize them with both the computer environment available, and research opportunities in Computational Chemistry. Its minority component is outstanding.